Geoscience Applications on Petascale Systems: Requirements Workshops; Early in August-2005 for a 4-6 Weeks Period

The project is a planning effort designed to develop a detailed analysis of the high-end computing requirements of geoscience research challenges and to share information on the implications, for geoscience research, of architectural trends in high-end computing system design. Through tele-conferences, workshops and outreach at professional meetings, the project will bring together geoscience modelers, computational scientists, and architecture experts from major high-end system and processor vendors. This planning effort is consistent with a recommendation for such an activity that emerged from a recent study, by members of the geoscience research community, of the scientific need for, and technical feasibility of, a petascale computing collaboratory for geoscience research. The anticipated consequences of this effort are: (i) the development of technical requirements that will be useful to groups acquiring high-end computing systems for geoscience research, and (ii) a stronger focus within the computational geosciences community on matching algorithm design to computational architecture design, leading eventually to increases in the ability of the geosciences community to make effective use of high-end computational resources.